Implementation of a Pilot Global Geocryological Database at WDC-A Glaciology

Abstract ATM-9528007 Barry, Roger G. Hanson, Claire University of Colorado Title: Implementation of a Pilot Global Geocryological Database at WDC-A Glaciology This is a one year grant to rescue, recover, archive and disseminate permafrost data that was collected in the former Soviet Union but is in danger of getting lost permanently. The project is guided by criteria for priority databases established by the IPA working group on permafrost data and information. This data is very valuable for climate research.